Promoting Science Literacy for All Americans, including Culturally and Linguistically diverse Students: Keeping the Promise

; R o o t E n t r y F a C o m p O b j b W o r d D o c u m e n t * O b j e c t P o o l a a 4 @ ! " # $ % & ' ( ) * F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; This 36 month project will implement an integrated intervention that promotes literacy development and science learning with three ethmolinguistic groups ... with a focus on limited English proficient students. The intervention integrates four components: (a) science learning, (b) language development, (c) instructional strategies, and (d) cultural and linguistic understanding. The application of these components together makes the intervention developmental both for the teachers and the students. The PI s will collect and compare baseline data with the results of the intervention and focus on oral and written language-for-learning skills centered on specific science content units. Additional data will compare bilingual and monolingual teachers/classrooms. ; Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT This 36 month project will implement an inte S u m m a r y I n f o r m a t i o n ( grated intervention that promotes literacy development and science learning with three ethmolinguistic groups ... with a focus on limited English proficient students. The intervention integrates four components Sadie R. Jones Sadie R. Jones @ q a @ @ q a @ e Microsoft Word 6.0 1 ; e = e * j j j j j j j v 1 X T / v j v j j j j ~ j j j j 1 This 36 month project will implement an integrated intervention that promotes literacy development and science learning with three ethmolinguistic groups ... with a focus on limited English proficient students. The intervention integrates four components: (a) science learning, (b) language development, (c) instructional strategies, and (d) cultural and linguistic understanding. The application of these components together makes the intervention developmental both for the teachers and the students. The PI s will collect and compare baseline data with the results of the intervention and focus on oral and written language-for-learning skills centered on specific science content units. Additional data will compare bilingual and monolingual teachers/classrooms.